Graduate Training in Computational, Cell and Developmental Biology

This award to a group of 13 Faculty from 3 departments (Biological Sciences, Chemistry, and Computer Science) provides 5 slots for an interdisciplinary training program in biophysical approaches to cellular and developmental biology. All faculty are members of the STC for Light Microscope Imaging and Biotechnology. The training program will consist of six required courses, four of them new interdisciplinary courses (fluorescence spectroscopy, biological imaging, quantitative light microscopy and computational biology.) and two of them existing advanced courses in cell biology and developmental biology that are being modified to fit the program's biophysical aims. The training will equip students with the intellectual and experimental skills to pursue both basic and applied research in a multidisciplinary area of great excitement.